Presidential Young Investigators Award: Novel Approaches to Environmental Systems

This is an award to provide the initial increment of support for this Presidential Young Investigator who plans to conduct research on improvement of the analytical capabilities of environmental models to increase the usable information that can be obtained from their operation. His approach involves combining analytical tools from a variety of fields to work with simulation techniques to enhance their usability and power. This entails the development of decision support systems to aid the user to make the most appropriate decision based on model simulation. Examples include: Linking geographic information systems with water quality models to allow for rapid and direct visual analysis of the model's output, incorporation of Monte Carlo analysis with water quality models to produce quantitative comparisons of monitoring and sampling strategies, inclusion of uncertainty analysis with simulation results, and use of expert system rules and improved parameter estimation techniques to aid the user in model calibration. The results are expected to improve the engineering design of systems to minimize environmental pollution.